Normal Subgroups of the Groups of Rational Points of Algebraic Groups, Congruence Subgroup Problem, and Related Topics

The principle investigator is studying normal subgroups in the groups of
rational points of algebraic groups and in their important subgroups
(such as S-arithmetic subgroups). Questions of this nature are rooted in
the works of the founders of modern algebra such as Galois, Jordan and
Dixon, and have been an area of active research in various periods of the
20th century (among important contributors one can mention Artin,
Dieudonne, Tits). While these works dealt mainly with the isotropic case
where one can use unipotent elements, the PI's research focuses on the
anisotropic case where no unipotent elements are available, hence essentially
new techniques are needed. Anisotropic groups are usually associated with
noncommutative division algebras. Recently, in a joint work of the PI with
Y.Segev and G.M.Seitz, new methods for analyzing normal subgroups of the
multiplicative group of a finite dimensional division algebra were developed,
and the current proposal describes a variety of problems where these
methods or their suitable adaptations can (and will) be used. In particular,
the PI intends to make a substantial progress in the investigation of
unitary groups over global as well as general fields. Another
central topic of the project is the congruence subgroup problem
for S-arithmetic groups. The PI will continue the ongoing joint
research with G.Prasad focused on proving centrality of the
congruence kernel in new cases, and also the work on the book
project devoted to the congruence subgroup problem.

The investigator's research is on the structure of classical and
algebraic groups and their arithmetic subgroups. Questions of this
nature are rooted in the works of the founders of modern algebra
such as Galois, Jordan and Dixon, and have been an area of active
research in various periods of the 20th century. In particular,
it should be noted that the congruence subgroup problem is
connected with other fundamental problems in number theory, currently
applied in data transmission, data processing and communication systems.